Anomalous Regional Climate Event Studies with Variable-Resolution Stretched-Grid General Circulation Models

The research will use a variable-resolution stretched-grid general circulation model (SG-GCM) to conduct climate studies on anomalous regional events. The following issues will be addressed: (a) numerical experimentation with new emerging SG-GCMs incorporating land-surface models; (b) simulation at seasonal and interannual temporal scales, and regional-to-global spatial scales; (c) improved understanding and modeling of processes that affect regional climate variability. The major goals are simulating the 1997-1999 El Nino Southern Oscillation and related monsoon circulation with 25-40 km and finer resolution; studying intraseasonal and interannual regional climate variability for the extended multiyear SG-GCM simulations; studying the impact of sea surface temperatures and land-surface forcing on SG-GCM simulations; studying the impact of ensemble integrations; and developing educational tools for students. The work is important because the SG-GCM formalism may prove to be a viable new approach to regional and subregional climate studies and applications.